NSF Student Travel Grant for the Programming Languages Mentoring Workshop at ACM SIGPLAN Conference on Programming Language Design and Implementation (PLMW@PLDI), 2023-2025

A Programming Languages Mentoring Workshop (PLMW) is organized as part of the ACM SIGPLAN Conference on Programming Language Design and Implementation (PLDI), the premier forum in the field of programming languages and programming systems research, covering the areas of design, implementation, theory, applications, and performance. The conference and workshop will be held in Orlando, Florida, in 2023; in Copenhagen, Denmark, in 2024; and in South Korea in 2025. This award specifically supports students from underrepresented groups and gives priority to US citizens and permanent residents to attend the mentoring workshop in addition to the PLDI conference. The impact of the award relates to broadening participation in computing, providing opportunities for students to receive mentoring from leading researchers, and building the next generation of researchers and knowledgeable practitioners in programming languages and programming systems research.